Improved Online STEM Instruction For Rural Alaskan Native Students

This project will address these issues; under-prepared Native students, poorly designed
courses, and a need for water and wastewater technicians. The project proposes to
investigate the literature regarding Native American and Native Alaskan learning styles
and to design, develop, deliver and evaluate six short, online technical courses for the
Environmental Technology Program at UAS - Sitka.

Sound teaching strategies, designed and tested through this project, will be adopted for
the rest of the UAS - Sitka Environmental Technology Program, and other technical
distance program at the university will be encouraged to use them. Strategies will also be
appropriate for other STEM courses and programs, and could be valuable for Native
American students throughout the country. Skills developed, during study in the security
of their home community, will encourage Native students to enroll in STEM programs
and should increase retention and graduation rates.